Wireless Connectivity in Mohave County

This award is made under the innovative technology connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64, which covers K-12 education institutions (including vocational technical schools), public libraries and museums. It provides partial support for one year to establish wireless connections to four K-12 schools in a rural community in northwest Arizona.